Collaborative Research: CT-M: Hardware Containers for Software Components

This project focuses on hardware features
to improve the security of software systems.
By refining the coarse-grained protections available in
today's architectures, the project will aim to protect
the integrity of individual software objects or components.
The hardware mechanisms force tight controls on
the execution of software components, which
programmers can define to be as large as entire
applications or as small as individual objects.
The goal is to rapidly detect and also recover from attacks that
improperly access memory or take over the CPU.
The approach also includes hardware-supervised
recovery, to enable systems to return to normal
operation after an attack and to protect the recovery
process itself from attacks.

The benefits of this project include the ability to
thwart a large class of attacks and the potential of
developing more robust software systems in the future.
Recovery, which has received somewhat less attention than
attack prevention or detection, is especially important for
embedded systems that do not have the luxury of intervention
by human operators.

The project will be used to train graduate students and to
feed material into graduate courses taught at the three
participating universities. Modules will also be developed for
use in K-12 education with the aim of drawing students into
considering careers in computer science and engineering.